Oceanographic Instrumentation

This award provides funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V KNORR, a 279 foot vessel owned by the Navy, the R/V OCEANUS, a 177 foot vessel owned by NSF, or the R/V ATLANTIS II, a 210 foot vessel owned by WHOI. All of these vessels are operated by the Institution in support of oceanographic research, and NSF is the primary user of each ship. Instrumentation funded includes a variety of computer hardware, a thermometer and temperature standard for the temperature calibration facility, a wire-lowered ADCP, a clean wire system, a portable fiber optic winch, a magnetometer, Niskin bottles, and CTD sensors. The instrumentation requested is required for support of NSF-funded cruises aboard the ships during 1995 and will enhance the scientific capability of the vessels in the future. ??